SGER-RUI: Tree Canopy Biodiversity (Myxomycetes, Macrofungi, Mosses, Liverworts, and Lichens) in the Great Smoky Mountains National Park

ABSTRACT

DEB 0079058
Keller
Central Missouri State University

The objectives of this research project are to initiate the first survey and inventory of tree canopy biodiversity for myxomycetes, macrofungi, mosses, liverworts, and lichens in the Great Smoky Mountains National Park. The research team will include a multidisciplinary research team including experts in non-vascular plants from the US and Sweden, graduate and undergraduate students, and volunteers. The research is focused on searching for undescribed taxa, comparisons of tree canopy dwelling cryptogams, and collection and curation of little-known assemblages of treetop biodiversity. The research will help document the tree canopy biodiversity in tree species rapidly declining due to insect and fungal pathogens, and atmospheric pollution.